Support of the Division of Environmental Biology's Ecological Studies Cluster

9615092 Binaut This award will underwrite the provision of essential technical and administrative support services for the Ecological Studies Cluster (Ecology and Ecosystem Studies programs). The current effort will provide those services pertinent to competitive research proposals received in response to the cluster's June 15, 1996 target date.